Predictive Models of Facial Expression: Interactional Intelligence in Context

The ability to infer the internal state of others is key to intelligent interactive behavior. This proposal explores how one’s expectations and predictions of the facial expressions of others supports communication that is rapid, nuanced, and context-dependent. The PI plans cognitive and behavioral tests of the perception of facial expression in both laboratory and naturalistic settings, in order to move beyond the small taxonomy of mental states common in the literature to a much richer and more continuous representation of mental states. The cognitive and behavioral results will be integrated with language and vision AI models to build a rich computational model of facial expression perception. The work advances knowledge about how humans infer meaning from facial expressions, how those inferences inform intelligent decision-making and future interaction, and how human-centered artificial intelligence can be grounded in real human perception. Although the focus of the work is how the human mind predicts and interprets facial expression, the computational advances and open-source data sets generated could meaningfully enhance human-centered AI. The project also trains students and early-career researchers in advanced computational methods to support U.S. leadership in human-centered AI.

Participants in the project view carefully controlled, computer-generated faces whose expressions can be precisely varied. Instead of choosing from a short list of emotion words, participants describe in their own words what each face appears to express or communicate. Speech-processing and language-modeling tools convert these descriptions into numeric representations of meaning. These data are then used to build predictive models that estimate how facial expressions influence human interpretation, including how the same expression may be understood differently depending on the visual context. Finally, the models are tested on behavior recorded during natural conversations, allowing the project to generalize results from the laboratory setting.